Mathematical Sciences:Topics in the Theory of Modular Forms

This project is concerned with two problems in the theory of modular forms. The principal investigator will study bounding the norm of the Poincare theta operator. She will also study modular integrals with rational period functions using a cohomological approach. Modular forms arose out of non-Euclidean geometry in the middle of the nineteenth century. Both mathematicians and physicists have thus long realized that many objects of fundamental importance are non- Euclidean in their basic nature. This field is principally concerned with questions about the whole numbers. However, in its use of geometry and analysis, it retains connection to its historical roots and thus to problems in areas as diverse as gauge theory in theoretical physics and coding theory in information theory.